DataX: Exploring Justice-Oriented Data Science with Secondary School Students

Understanding data is critical for informed citizens. Data science is a growing and emerging field that can incorporate statistics, mathematics, and computer science to develop disciplinary knowledge and address societal challenges. This project will develop an integrated, justice-oriented curriculum and a digital platform for teaching secondary students about data science in science and social studies classrooms. The platform will help students learn about data science using real-world data sets and problems. This project includes science and social studies teachers in the design of the resources and in testing them in secondary school classrooms. Research and development in data science education is needed to understand how students can learn more about the use of data in meaningful and authentic ways. This interdisciplinary project will also help students meaningfully analyze real-world data sets, interpret social phenomena, and engage in social change.

During a two-year project period, we aim to iteratively advance three design components of the DataX program: (a) a justice-oriented data science curriculum integrated in secondary science and social studies; (b) a web-based learning platform that extends the Common Online Data Analysis Platform (CODAP) to support collaboration and sophisticated data practices; and (c) pedagogical practices that involve learners to work collectively as community. The guiding research question is: What scaffolds and resources are necessary to support the co-development of data, disciplinary, and critical literacies in secondary classrooms? To address this, the project will use participatory design research with science and social studies teachers to develop and test the curriculum, the learning platform, and the pedagogical practices. The data collected will include qualitative sources gathered from participatory design workshops and classrooms, as well as quantitative data from questionnaires and system logs. Using the data, we examine students' data science skills, data dispositions, and social participation in collaborative data investigations.

The Discovery Research preK-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.